Acquisition of Automatic Probe Station and Automatic Wire Bonder

This proposal requests support for automated equipment for use in assembling and testing state-of-the-art silicon detectors and custom designed VLSI electronics to be used in several high priority experiments in the EPP program. This in-house facility will replace contractual work which cannot now meet the custom requirements of these detectors. Students and post-doctoral researchers will receive valuable training in the advanced techniques that are necessary in this project.